Statistical and Computational Methods in Genetic Analysis

Large and complex genetic data sets present a great deal of challenges to
standard data analysis techniques. In many cases, standard methods are
infeasible or even impossible for analyzing such data. This research
is to develop statistical and computational methods relevant to the analysis
of complex human pedigree data. The first main focus is to solve problems
that involve large complex pedigrees, multiple polymorphic markers, incomplete
genotypes, and complex disease models. The second main focus is to study
further the Chi-square (CHS) recombination models, to develop new techniques
to incorporate CHS into methods of gene mapping to achieve greater efficiency
of data, and to apply this methodology to study genetic interference in the
human genome. Most of the proposed research in this project is to be carried
out using the Markov chain Monte Carlo (MCMC) methodology. Exploration of MCMC
methods in human pedigree analysis thus far shows that this methodology is
highly suitable for estimating probabilities and likelihoods. However, because
of special features of models and methods appropriate for modern human
genetics, special modifications to the standard MCMC approach are required
for this technique to be effective in a variety of genetic mapping problems.
This project continues the work of making these modifications and exploring
new applications.

The last decade has seen rapid advancements in the field of human genetics.
Large and complex data sets are accumulating at an incredible rate. Some
disease genes (most of them are for single-gene simple genetic disorders) have
been identified and mapped. This includes the genes responsible for cystic
fibrosis, Huntington's disease and some breast cancers. This has tremendous
implication in genetic counseling, genetic testing and screening, drug
discovery, and genetic therapy. Identification of genetic factors for complex
diseases is a far more difficult task. Complex diseases may be genetically
heterogeneous caused by different susceptibility genes, or may be caused by
a combination of genes with possible environmental effects. Many common
diseases have complex etiology, and are believed to be at least partially due
to genetic predisposition. Common diseases such as diabetes, alcohol
dependence, and some forms of cancer are examples of complex disorders.
Methods developed in this research can handle complex genetic models and make
use of available genetic data fully, thereby increasing the power to map
genes for complex diseases.